Russian Local Government Economic Priorities and Policies

University of Arizona The proposed research seeks to explore the use of local economic development instruments by Russian local governments during restructuring and to explain local policy variations. The research analyzes the extent to which local policy makers have begun to use new methods to transform the structure of the local economy. Specific topics of analysis include local government policy goals and priorities, the tools used to achieve those, and how geographical land use within the city is determined. The core of the research effort is a survey designed to query local and regional officials and policymakers. The results of the survey will be analyzed statistically and compared with similar cities in advanced capitalist democracies